The Albert Einstein Distinguished Educator Fellowship Program

DGE-0003299

The Triangle Coalition for Science and Technology Education, through its Albert Einstein Distinguished Educator Fellow Program, provides school teachers with an opportunity to bring their knowledge and experience to appropriate branches of the federal government that impact the educational system of the
United States. Einstein Fellows bring a wealth of information and experience concerning the teaching and learning of science and mathematics in K-12 schools. This proposal requests funding to support one Albert Einstein Fellow to work in the Division of Graduate Education. This Fellow's expertise would be benefical
to the Graduate Teaching Fellows in K-12 (GK-12) program